MSEN Middle School Academy

9452763 Friel The University of North Carolina Mathematics and Science Education Network (MSEN) will initiate a four week, summer commuter, Young Scholars program in mathematics and physics with follow-up academic year Saturday sessions for 480 seventh and eighth grade minority and female students. The project entitled Mathematics and Science Education Network (MSEN) Middle school Academy is initiated by MSEN and the University of North Carolina at Chapel Hill. Students will participate in experimental learning activities in mathematics, science, career exploration, and communications. Activities will take place in the classroom, university laboratories, and through field trips to business and industry sites.